Conference: 34th Cumberland Conference on Combinatorics, Graph Theory, and Computing

This award supports participation by junior researchers, graduate students, and undergraduates in the 34th Cumberland Conference on Combinatorics, Graph Theory, and Computing at Auburn University on May 17-18, 2025. This annual conference fosters engagement among regional and international researchers in discrete mathematics, the area of mathematics studying finite structures, and computer scientists. The conference is expected to attract an attendance of 100 or more.

The conference features four plenary speakers delivering 1-hour talks and approximately 40 contributed 25-minute talks. Focus areas include structural graph theory, matroid theory, applications of graph theory, and connections between graph theory and other mathematical areas. The conference provides a platform for mathematicians at all career stages to present and discuss their work, fostering communication and feedback opportunities for students and early-career researchers, thus contributing to the development of a globally competitive STEM workforce. The conference website can be found at: https://www.auburn.edu/cosam/departments/math/cumberland-conference/index.htm